New Directions in Quantum Computation and Communication

EIA-032355
Yaoyun Shi
University of Michigan Ann Arbor

New Directions in Quantum Computation and Communication

In recent years, it has been demonstrated that quantum information behaves fundamentally different from classical information, and, it appears that computers based on exact quantum mechanical principles can be dramatically more powerful than those currently deployed. This project investigates several fundamental issues in a wide range of aspects of quantum information science. The topics include searching for fast quantum algorithms, systematic classical simulations of quantum circuits, quantum intractability, restricted quantum computations, and quantum communication protocols, among others. The techniques employed are drawn from many branches of mathematics such as probability theory, combinatorics, matrix analysis, and group theory, as well as from the rich subject of classical complexity theory.

As one of the most exciting scientific developments in recent years, quantum information science promises far-reaching impacts on the efficiency and the security of information processing. This project could significantly advance our understanding on the inherent power and limitations of quantum computation and quantum information.